Novel Approach to Ultrasonic Transducer Characterization Using the Extended Angular Spectrum Method

This is a novel electrical/computer engineering approach to the difficult problem of deducing physical information from acoustic signals. This research will address issues concerning nonlinear propagation effects in order to predict propagation of sound waves through inhomogeneous, nonlinear, tissue media. A new era is emerging, namely, non-invasive visualization of internal organs. This proposal suggests a new means for accomplishing this goal. This is a high-risk, high-gain proposal. This type of research could substantially contribute to visualization of internal organs without the use of ionizing radiation.